Mathematical Sciences: Oscillatory Systems Arising in Dynamical Models

This project is to study the dynamics which arise in mathematical models of various physical systems. Two such systems which will receive particular attention are the Hodgkin- Huxley equations of nerve conduction and the swing equations of networks of electrical generators. For large systems investigations will focus on decoupling into several simpler systems.